MRI: Minority Internships in Parallel Computing

This award supports a one year internship in parallel computing for a faculty member from a minority institution. The objective is to give the participant the opportunity to master techniques and to conduct research in parallel computing. Working closely with computer scientists who are experts in parallel computing, the participant will learn about various debugging tools and performance measurement techniques available for parallel programs, study languages used to program multiprocessors, and work on the design of algorithms to exploit parallelism. The participant will then be encouraged to review the wide range of applications being carried out on multiprocessors, and to propose and work on his own new applications. Finally, the participant will have hands-on experience with a variety of different advanced-computer architectures. The proposed internship will provide an excellent opportunity for a faculty member to acquire knowledge and experience in the area of parallel computing. The current internship program has attracted highly qualified faculty members who wish to keep abreast of new technologies. We are confident that the proposed program will be equally successful.